An In-Situ Nitric Oxide Sensor for Power Plant Emission Control

9523327 Parker The Colorado School of Mines and Public Service Company of Colorado propose to develop a passive emission sensor which can accurately quantify nitric oxide concentrations and gas temperature in power plant exhaust flows and demonstrate it's utility as a feedback sensor in an NO control system. The technology developed for the NO sensor will also be used to produce a sensor for ammonia. Using an upstream monitor for NO concentration coupled with a downstream monitor for ammonia, a feedback control system for Thermal DeNOx will be demonstrated in the laboratory. In addition, we will work toward implementation and validation of both sensors in a full scale powerplant. The overall measurement system will be non-extractive and will provide accurate and reproducible measurements of both transient and steady-state NO concentrations. In addition, the system concept is simple and robust; instruments that are suitable for use in the field, and do not require frequent calibration or highly trained operators will be the end result of this research project. The measurement technique is based on spectrally resolved emission from nitric oxide and water at wavelengths near 5.2 microns. Emission from nitric oxide will be used to quantify NO concentration and water emission will be used to determine the temperature of the flow. A scanning Fabry-Perot interferometer will be used within the device for wavelength selection; this device can, in principle, operate over a large range of wavelengths and can be adapted to become a field hardened instrument. Investigation on application of the proposed sensor system principle for measuring other pollutant will be carried out in this study. ***